Travel: NSF Student Travel Grant Proposal for 2022 New England Hardware Security Day (NEHWS2022)

NEHWS 2022 is an event jointly organized by faculty at Northeastern, UMass Amherst, Yale and Worcester Polytechnic Institute (WPI). NEHWS 2022 will be held as a one-day workshop on April 1, 2022 in the Marriott Center at UMass Amherst. This travel grant supports students to attend NEHWS. Having explicit funding to support students allows the organizers to include more students among the attendees.